Studies in Molecular Recognition

The objective is to design new, conformationally homogeneous, enantioselective receptors for functionalized, chiral organic molecules such as peptides. The receptors, that will be synthesized from readily available materials, are expected to show high distinctions between enantiomeric guests, based on previous work. Such molecules may form the basis of a practical resolution method based on chiral polymer beads and simple filtration. The binding data collected will also be valuable for testing the computational methods for predicting binding properties. Such predictions are crucial for truly rational molecular design. To use free energy simulations for reliable predictions, recent results suggest that impractically long simulations may be necessary. Consequently, new methods will be designed to accelerate dramatically the convergence to stable free energies. These enhancements will include the development of useful and more realistic continuum solvation models, and mixed dynamics/Monte Carlo simulation methods. %%% With this award, the Organic Synthesis Program will support the research of Dr. W. Clark Still at Columbia University. The synthesis of enantioselective receptors will be undertaken, guided by theoretical considerations. This will allow the chemist to separate the mirror image forms of chiral molecules. The ability to do this systematically on a large scale will provide an important tool to synthesize the increasingly complex substances needed in biochemistry and medicine, as will as in the chemical industry.